Large Scale Flow Organization and Jet-Related Structures

9423556 Panetta The central theme of this research project is to investigate the factors which control the positions, structures, and interactions of the atmosphere's subtropical and polar front jets. Three major topics will be pursued. The first is to examine the factors determining the meridional extent of the Hadley circulation. The second is to investigate whether the degree of separation between the two jets is related to the frequency of blocking formations in the large-scale flow. Finally, the principal investigator will explore the generation of vortices through wave-breaking on tropical jets. The principal tools are idealized, dry hydrodynamic models which differ in physical extent and dynamical regime, depending on the aspect of flow organization being studied. These include several versions of the NCAR Community Climate Model and quasi-geostrophic beta- plane models. ***